Complexity Theory and Its Application to Continuous Problems

This project continues prior reseach and initiates new research in three areas of computational complexity: 1. Computational complexity of real functions. The concepts and techniques of NP-completeness theory will be applied to continuous problems. 2. Structure of intractable problems. Structural properties of intractable problems, such as polynomial isomorphism, Kolmogorov complexity, and polynomial-time bounded reducibilities will be investigated. 3. Feasible inductive inference. Polynomial-time inferability of pattern languages and probabilistic automata will be investigated in the setting of worst-case exact learning.